Mathematical Sciences: Stochastic Processes

This award will support the training of graduate students in probability theory at the University of Minnesota. The faculty consists of six well known researchers in various areas of probability theory, who have a consistent tract record of training strong students. This award will also support the post doctoral research of Roger Tribe, who will conduct research in the area of super-processes. These processes can be used to model the dispersion of certain species of individuals.